First Workshop on Proximity Graphs, November 30 - December 2, 1989 at New Mexico State University.

The purpose of the proposed workshop is to bring together some of the researchers active in the study of proximity graphs to exchange information and recent results, and review important unsolved problems. Areas to be included in the workshop and theory, computational aspects, representation and presentation, and applications.